Scholarship Program in Computer Science and Mathematics

During the first year, the project team plans to award scholarships to twelve first
year students who are enrolled in a mathematics or a computer science major.
The scholarships are renewed each year for up to a total of four years. During the
second year of the project, an additional six scholarships are awarded to sophomore
majors students to support and encourage them to change their majors to math or
computer science. These scholarships are renewed for a total of three years. The `
awards are renewed as long as students make satisfactory academic progress and
remain within the major.

The primary goal of this scholarship program is to increase the number of and the
retention of majors in computer science, computer information systems and
mathematics. Because our curricula provide a solid theoretical and practical
foundation for careers in these fields, increasing the number of majors will have
the effect of increasing the number of skilled and knowledgeable workers
qualified for many high-tech jobs. A secondary, but equally important, goal is to
increase the number of women and minority majors. This is especially important
in computing where women and minorities are traditionally under represented. To
meet these goals, the project team is enhancing existing student support systems
and extend existing research and project opportunities to provide training and job
experiences.

Ithaca College has extensive recruiting programs through the admissions office
and the Higher Educational Opportunity Program (HEOP). The latter program
specifically targets minority recruiting. Both of these programs provide additional
support for new initiatives such as this scholarship program. Faculty members are
traveling to selected high schools to inform faculty and staff about these
scholarships. The project team is providing printed and on-line materials to
prospective students, and is encouraging prospective students to communicate
directly with mathematics and computer science faculty. The selection of students
for the program is made by a team that is composed of two faculty from mathematics,
two faculty from computer science and one academic advisor staff member from
the student Adacemic Advising office . Students Academic qualifications data are
provided by the admissions office, and financial need data are provided by the financial
aid office. Combining the requested scholarships with college funds and other federal
funds, we aim to meet 100% of financial need while minimizing loans.

Support for matriculated students to remain in a mathematics or computer science
major is provided through many venues. Upper level students serve as teaching and
lab assistants in open labs during evening and weekend hours and in walk-in
help rooms. Courses are available to provide academic prerequisites for students who
are lacking some specific skills. Additional opportunities for faculty and upper-level
student mentoring especially for women and minorities have been established.
Real-world experiences are provided within courses and by providing the students
with relevant work experiences, e.g., as assistants in courses and computer laboratories.
The project team plans to establish a networking program between recent graduates
and current undergraduates to provide regular communication channels to support
mentoring. Processes are in place to aid and ensure that students effectively use the
services provided by career planning function at Ithaca College.